Preparing Geoscience Graduate Students for Teaching: NAGT Workshops to Examine Current Practices and Design Programs for the Future

9809411
Macdonald

This project proposses to offer two National Association of Geoscience Teacher workshops on the Preparation of Geoscience Graduate Students for Teaching in conjunction with meetings of the Geological Society of America and the American Geophysical Union. The workshops will bring together faculty from departments or programs representing an intentionally varied set of established and successful teaching preparation programs with others who want to implement or improve their teaching preparation programs. The emphasis will be on demonstrating best practices for preparing graduate students to teach in inquiry-based instructional settings. Dissemination will include an interactive web-site and publication of a short synopsis of the workshop to a longer summary article describing successful models for TA and future preparation in the geosciences.